SBIR Phase II: Enhanced materials for renewable fuel production and efficient emission reduction

This Small Business Innovation Research Phase II project will expand on the successful work from Phase I project on synthesis and characterization of metal oxide nanocomposite materials that can capture HBr and be regenerated to produce bromine. The capture and regeneration capabilities of these materials are integral to the economic viability of the GRT Gas-to-Fuels/Chemicals rocess and the GRT Propane-to-Propylene Process. In the GRT Processes, natural gas alkanes are (1) reacted with bromine to form reactive lkyl bromides that are (2) reacted over catalysts to produce alkanes, aromatic compounds and olefins. The metal oxide nanocomposite was ound very efficient at sequestering HBr produced in the process as a metal bromide. The use of metal oxides allows for a very inexpensive eparation of HBr from the hydrocarbon products. Subsequent oxidation of the metal bromide produces bromine. Thus the bromine needed in 1) is generated in situ as necessary and is fully contained within the process. During Phase I, we identified metal oxide nanocomposite materials with favorable capacity and capture-regeneration cycle stability that makes industrial use economic. The proposed work is targeted at conducting further testing of these composite nanomaterials on a larger scale and in combination with other Process steps.

The broader impact/commercial potential of this project is that it can contribute to the urgent need for methods to economically produce renewable hydrocarbon fuels and high value chemicals that are more efficient than existing technologies. GRT is developing novel processes for the conversion of methane, ethane and propane into higher value hydrocarbons suitable for gasoline and jet fuel blend stocks, aromatic compounds or high value chemicals which can cost-effectively utilize stranded and/or small reserves of natural gas and shale gas. This upgrade of inexpensive natural gas to high value transportation fuels and chemicals at the source is very valuable because it eliminates the need for gas processing and pipeline transportation. The commercial viability of these technologies depends on energy efficiency and the capital cost of plant equipment. Improvement in the performance and stability of solid reactant/metal oxide nanocomposite materials will make substantial improvements in both of these metrics and hence in the commercial viability of the GRT Processes.